Low-Temperature Atomic Force Microscopy with Freeze FractureEtching

The objective of this three year proposal is to construct a low temperature atomic force microscope (AFM) combined with the freeze-fracture/freeze-etch technique of structural biology research. A prototype is expected to be completed within three years, and it will be dedicated to instrumentation calibration and structural study of macromolecules of biological importance. Structural information on functional proteins in liposome obtained by electron microscopy is limited to a resolution about 2-5 nm in conventional freeze-fracture/etch practice, due to the limitation by the gain size of shadowing metal particles. However, the newly developed AFM, which uses interacting force between a sharp tip at the end of a cantilever and the specimen surface topology, can achieve atomic resolution with high signal to noise ratio. Unfortunately, the conventional AFM applies a much stronger probing force to the specimen surface than that can be withstood by a biological specimen at room temperature. At low temperatures this become a minor problem, because a frozen specimen is less disturbed by the probing force. We propose to build a liquid nitrogen temperature AFM system, and use this modified AFM for elucidation of molecular and submit structures of membrane associated and purified macromolecules. The system incorporates an ambient pressure freeze-fracture/etch apparatus working in liquid nitrogen and an AFM in pure nitrogen vapor, thus a freshly prepared specimen is immediately scanned to study its surface structure. Furthermore, the system is self enclosed and sufficient measure has been taken to keep specimens free from any contamination, especially water condensation on the specimen . Thus, the proposed low temperature AFM can be used to elucidate the molecular structures of a variety of functional membrane proteins and specific inhibitors, and will provide valuable information about their interaction, conformational changes, and higher order structures.